Building a History of the Blacksburg Electronic Village

9424506 Carroll This project will organize extant documents and other related materials pertaining to the Blacksburg Electronic Village (BEV). In addition to facilitating the time-critical development of an in-depth history, this project will provide the beginning for a self-sustaining digital library for the BEV. As such it will be the first step in the development of histories of the evolving Village information systems and a reference model for other community networking projects.